MRI: Acquisition of a 400 MHz NMR Spectrometer

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

With this award from the Major Research Instrumentation (MRI) program, Kevin D. Revell and colleagues Edie J. Banner and James R. Cox from Murray State University will acquire a 400 MHz NMR spectrometer to support research in designing nitrogen-containing heterocyclic scaffolds for application to natural product synthesis, synthesis and characterization of conjugated oligomers for application in organic photovoltaic devices, as well as probing interactions of aromatic systems in proteins.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic/inorganic chemistry, biochemistry and energy research. This instrument will be an integral part of teaching as well as research.